NUE: NanoCORE II (Nanotechnology Concepts, Opportunities, Research and Education) at the FAMU-FSU College of Engineering

The Nanotechnology Undergraduate Education (NUE) in Engineering program at Florida A&M University (FAMU)-Florida State University (FSU) entitled "NUE: NanoCORE II (Nanotechnology Concepts, Opportunities, Research and Education)at the FAMU-FSU College of Engineering", under the direction of Dr. Ongi Englander, is designed to introduce aspects of nanoscale science and engineering into the core undergraduate curriculum. The NanoCORE II program will infuse and integrate nanoscale science and engineering (NSE) as a permanent component of the undergrduate curriculum, present multiple opportunities for undergraduate learning of concepts in NSE and create opportunities for undergraduates to pursue nanotechology related research activities. The NanoCORE II program builds upon the existing NUE NanoCORE program which has made a noteworthy impact on FAMU-FSU undergraduate educational content and experience since its inception in early 2009.

The broader impact of the NanoCORE II program includes the engagement and training of undergraduate students, and particularly those from traditionally under-represented groups in areas of great technological importance. Course materials developed through this project will be made widely available through web resources and presented to the local community through outreach activities. In particular, introductory nanotechnology material designed to target a wide audience will be disseminated at the National High Magnetic Field Laboratory (NHMFL) annual open house, at a Saturday children's program at a local museum, and through lectures and demonstrations presented to Tallahassee Community College, WIMSE (Women in Math, Science and Engineering) and FGAMP (Florida-Georgia Alliance for Minority Participation) college students.